Start-Up Equipment for UNIDATA Set-Up at Utah State University

Support will provide Unidata functionality for the campus community at Utah State University (USU). The initiative will be coordinated and managed through the Department of Geography and Earth Resources at USU. The equipment will be used to establish a new forecasting laboratory with workstation facilities for students and research scientists. The laboratory equipment includes one Unix server and four Unix workstations.